DC: Small: Collaborative Research: DARE: Declarative and Scalable Recovery

One dominant characteristic of today's large-scale computing systems
is the prevalence of large storage clusters. Storage clusters at the
scale of hundreds or thousands of commodity machines are
increasingly being deployed. At companies like Amazon, Google, Yahoo,
and others, thousands of nodes are managed as a single system.

As large clusters have brought many benefits, they also bring a new
challenge: a growing number and frequency of failures that must be
managed. Bits, sectors, disks, machines, racks, and many other
components fail. With millions of servers and hundreds of data
centers, there are millions of opportunities for these components to
fail. Failing to deal with failures will directly impact the
reliability and availability of data and jobs.

Unfortunately, we still hear data-loss stories even recently. For
example, in March 2009, Facebook lost millions of photos due to
simultaneous disk failures that "should" rarely happen at the same
time (but it happened); in July 2009, a large bank was fined a record
total of 3 millions pounds after losing data on thousands of its
customers; more recently, in October 2009, T-Mobile Sidekick, which
uses Microsoft's cloud service, also lost its customer data. These
incidents have shown that existing large-scale storage systems are
still fragile to failures.

To address the challenges of large-scale recovery, the goal of this
project is to: (1) seek the fundamental problems of recovery in
today's scalable world of computing, (2) improve the reliability,
performance, and scalability of existing large-scale recovery, and (3)
explore formally grounded languages to empower rigorous specification
of recovery properties and behaviors. Our vision is to build systems
that "DARE to fail": systems that deliberately fail themselves,
exercise recovery routinely, and enable easy and correct deployment of
new recovery policies.

For more information, please visit this website:
http://boom.cs.berkeley.edu/dare/